EMSW21-RTG: Training Students in Geometry and Topology at Stanford University

The goal of this project is to enhance the education of students
in the areas of geometry and topology at Stanford by providing them with
interactive forums in which to broaden their knowledge and by providing
them with the time, through financial support, to participate in those
forums. Stanford has a broad and active research group in geometry and
topology with researchers in geometric analysis, differential geometry
and minimal surfaces, symplectic geometry and topology, low-dimensional
topology and hyperbolic geometry, geometric and algebraic topology, and
algebraic geometry. Aside from the breadth of fields covered, the
Stanford research group in geometry and topology is connected by a
network of overlapping interests and activities. The purpose of this
project is to attract students into this group and to allow them to more
fully benefit from the broad expertise it represents.

In order to facilitate the interaction between students and
faculty representing these varied interests, specific seminars are
planned. These will be run by senior faculty members and will involve
graduate students, postdoctoral researchers, and, in some cases, advanced
undergraduates, who are interested in these fields. Examples of such
seminars include the following:
1) Classics seminar: Students will present, under the supervision of a
faculty member, various ``classical papers" that transformed their
respective areas of mathematics.
2) Progress seminar: More advanced graduate students and postdoctoral
researchers will discuss their work in detail, as they are working on it.
3) Physics for mathematicians seminar: Geometry/topology students will study
a relevant area of Physics under the joint supervision of the Mathematics
and Physics faculty.
The proposal is designed to bring more US citizens/permanent
residents to the Stanford graduate program in mathematics. Special
attention will be given to attracting more women and minorities to the
program. The activities proposed here should also increase the size and
improve the quality of the pool of Stanford undergraduates who go to
graduate programs at US universities; the majority of these students
are US citizens or permanent residents.